NSF Young Investigator

9357203 Carlip This NYI award will support the research of a promising and accomplished young investigator. His research will include an exploration of basic conceptual and interpretational issues in the quantum theory of gravity. ***